U.S.-China Cooperative Research: Thermal Aspects of Manufacturing Processes

9411144 Komanduri This award supports cooperative research between Ranga Komanduri, Oklahoma State University, and Hou Zhenbin, Tongji University Shanghai, China. The proposal is for cooperative research on thermal aspects of manufacturing processes and materials. A variety of manufacturing technologies such as low-pressure CVD diamond coating techniques, magnetic field assisted polishing of advanced ceramics, laser assisted machining of materials, and conventional machining of superalloys will be considered. Advanced materials considered include diamond, ceramics, glasses, and composites. Initiation of investigation on some of these processes is proposed, with the expectation that collaborative work would continue beyond the duration of the award. This award supported under the U.S.-China Cooperative Research Program.